CAREER: Model Reduction for Control of Fluids

Model reduction for control of fluids
C. W. Rowley

Abstract

Many powerful techniques are available for analyzing and controlling
dynamical systems, if one has a tractable mathematical model, for
instance in the form of a differential equation. For fluids, and many
other systems of interest, models are well known, but are too complex
for traditional techniques from dynamical systems and control theory to
be practical. This program develops techniques for obtaining simpler
models of complex systems, in order to provide a bridge between
interesting multiscale applications, and the mathematical tools useful
for their analysis and control. The techniques will then be used to
address problems in fluid mechanics, focusing on controlling transition
to turbulence in a plane channel.

Specific model reduction techniques addressed will include balanced
truncation and Proper Orthogonal Decomposition (POD), and symmetry
reduction methods from geometric mechanics. Each of these techniques
has severe limitations when applied to fluids problems. POD often
produces highly unreliable models, and often the accuracy of the models
does not improve as the number of modes increases. Balanced truncation
applies to stable linear systems, and has good error bounds that
improve as the number of modes increases, but the method is not
tractable for very large systems such as fluids. A central component
of the research involves a new method for performing "balanced POD,"
which may be viewed as form of weighted POD that more heavily weights
states of large dynamical importance. In addition, ideas from symmetry
reduction, and heirarchical finite-element modeling combine to guide
the development of local versions of POD and balanced truncation, which
will capture traveling structures better than the global basis
functions produced by standard POD and balanced truncation.

The educational components of the program include developing an
exchange program with Brazil, in order to promote engineering education
in an international setting. In addition, a new outreach program will
help local elementary school teachers introduce engineering into K-6
classrooms, by organizing undergraduates to volunteer their time to
assist with the technical aspects of engineering projects.